RegA, Chloroplast Biogenesis, and Germ-Soma Differentiation in Volvox

Dr Kirk seeks to understand how a complete program for cellular differentiation is
encoded in a genome, and how it is executed at the cellular and molecular
levels. The model system being studied is Volvox carteri, a simple spherical
green alga with a division of labor between 2,000 terminally differentiated
somatic cells that undergo programmed cell death (after having provided
motility), and 16 germ cells that are potentially immortal. A key gene
regulating this germ-soma division of labor is regA , which acts in somatic
cells to block reproductive development. The RegA protein has features of a
transcription factor, and many of its putative targets have been cloned,
sequenced and shown to be nuclear genes encoding chloroplast proteins
("NGECPs"). He will test the hypothesis that RegA plays its key role in
germ-soma differentiation by acting in somatic cells as an active repressor of
NGECPs, thereby preventing chloroplast biogenesis, growth, and reproduction. He
will test the effects of inducible regA transgenes on transcription of these
NGECPs in both Volvox gonidia and Chlamydomonas cells. Then recombinant RegA
and anti-RegA antibodies will be used to test for binding of RegA to upstream
regulatory regions of its cloned putative target genes, and to immunoprecipitate
(and subsequently clone DNA of) chromatin fragments that bind RegA. The
significance of such binding sites will be tested with reporter constructs.
Proteins interacting with RegA will also be sought via a suppresser screen and a
yeast two-hybrid analysis.